REU SITE: Regional Initiative to Promote Undergraduate Participation in Experimental and Computational Materials Research

9987872
Vohra

The University of Alabama-Birmingham (UAB) continues operation of a Research Experience for Undergraduates (REU) Site. The REU Site is hosted by the Department of Physics at UAB and includes participation of faculty from Samford University and Tuskegee University. Eleven undergraduate students are recruited every year for a ten-week summer research experience, with a student recruitment focus on women and underrepresented minorities.

Student research projects include high-pressure materials research, diamond thin films growth and characterization, microelectronic materials, laser materials, gas phase and surface chemistry, and computer simulation of materials. In addition to participating in individual research projects, REU students attend seminars on scientific communication, on ethics in research and on preparation for graduate examinations, as well as on-campus social activities.